EAGER: An Investigation of the Partial Degrees in Which Logics Can Recognize Their Own Consistency and the Potentially Broad Inter-Disciplinary Implications of These Effects

Goedel's Incompleteness Theorem is essentially a 2-part result, whose
second facet establishes that all conventional axiom systems are unable to
prove a theorem corroborating their own consistency. This latter effect,
called the Second Incompleteness Theorem, is quite counter-intuitive
because human beings seem to implicitly believe that their cogitation
processes are consistent (in order for them to gain the needed motivational
energy for cogitation). Yet quite surprisingly, the Second Incompleteness
Theorem has demonstrated that conventional logics cannot corroborate such a
seemingly very natural consistency assumption.

The main goal of Willard's research project will be to explore to what
extent a logic formalism can wiggle around the Second Incompleteness
Theorem and formalize a type of at least partial instinctive faith in
its own consistency. Willard has already published several articles
exploring boundary-case exceptions to the Second Incompleteness
Theorem and generalizations of it, thus establishing the basic
foundational concepts for this quite unorthodox research approach

Willard's planned investigation will have an inter-disciplinary
emphasis, being germane to computer science, mathematics, the
cognitive and information sciences, philosophy and linguistics. It
will show that while self-justifying axiom systems have a very
unconventional outer shell, they do retain an ability to simulate most
of the practical computer-oriented knowledge of the data needed by any
arbitrary logically valid axiom system. It will also show how
computerized floating-point real number arithmetics behave very
differently from integer arithmetics and how self-justifying
formalisms retain an ability to expand their knowledge base by hopping
and skipping form one formal self-justifying axiom system to another
(via the use of Mind Change Theory and sundry trial-and-error
experimental methodologies).

The Second Incompleteness Theorem is sufficiently robust that its
evasion is feasible only in a limited context, where the specified
logic possesses a component that is unconventional in a nontrivial
way. The reason that such unconventional logics are of interest is
that human beings evidently possess some type of innate instinctive
understanding of their own self-consistencies (at least under some
formal definitions of consistency). It is therefore desirable to
understand what type of algorithmic processes and foundational
precepts from symbolic logic can simulate a Thinking Being's
conception of its own consistency (in either a full or partial sense).
The goal of this research project will be to investigate the nature of
and the potential uses and implications of logics that possess some
type of well-defined partial knowledge of their own consistency.